Robert Noyce Teacher Scholarship Program Capacity Building/Track 1 at Northeastern State University

Noyce Track 1 project aims to serve the national need of highly qualified STEM teachers in high-need secondary schools in rural and urban areas of northeastern Oklahoma. Oklahoma currently faces teacher shortages, including teachers qualified for instruction in mathematics, biology, chemistry, and physics. Specifically, this project will support 20 undergraduate students earning a bachelor’s degree in their STEM field as well as Oklahoma secondary teaching certification in mathematics, biology, chemistry, or physics by providing enhanced programming (expanded experiential learning opportunities, enhanced mentoring, and summer workshops) to prepare them for success teaching students in high-need school districts. After graduation, scholars will continue to receive high-quality induction support and professional development. The proposed project components will enable high-achieving prospective teachers to teach in high-needs school districts while combating the teacher shortage crisis by placing highly qualified teachers in these high-need areas.

This project at Northeastern State University includes partnerships with two K-12 partners: Tahlequah Public Schools and Union Public Schools.[1.1] Project goals include awarding 20 undergraduate student scholarships over the course of five years, to earn a bachelor’s degree in their STEM field as well as Oklahoma secondary teaching certification in mathematics, biology, chemistry, or physics. This project has the potential to innovatively prepare prospective STEM teachers to teach in high-needs school districts while combating the teacher shortage crisis by placing highly qualified teachers in these high-need areas. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation question(s): (a) What are the most useful strategies for recruiting science and math teachers at NSU? (b) What barriers did Program faculty and participants encounter in the recruitment and retention of scholars? (c) How many scholars completed the Program? (d) What, if any, increase was seen in the number of certified teachers compared to pre-Program level? (e) What did participants learn from the activities of the professional learning? (f) What was the impact of the Program science/mathematics teaching efficacy the scholars? (g) How many students transferred into the program from various areas? and (h) What is the impact of mentoring from undergraduate STEM faculty on the clinical teaching experience? The results of this project will be disseminated to help enhance the field. This Track 1: Scholarships and Stipends project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K-12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K-12 STEM teachers in high-need school districts.